Kinetic Studies of the Production of Select Peptides by Solid Phase Synthesis

Peptides are biological polymers made of amino acids which have several potential uses, primarily as hormones and drugs. Measurements of rates of solid phase peptides synthesis reactions for the production of several common peptides, in particular, Bradykinins, Angiotensisn, and Endorphins, are being made. The results of these experiments will focus on theimportant variables in peptides synthesis and allow for improved design and operation of potential large scale facilities.